Scheduling and Operating Systems for Real-Time and Embedded Systems

Proposal Number: CCR-9901697

Title: Scheduling and Operating System Support for Real-Time and Embedded
Systems

Principal Investigator: Kwei-Jay Lin, University of California, Irvine

The design and implementation of a Linux kernel for real-time and embedded
applications are proposed. The Real-time and Embedded Linux (RED-Linux)
kernel is designed to support applications that have both real-time and
non-real-time tasks with different QoS parameters. By integrating a
micro-timer and inserting preemption points in the kernel, RED-Linux will
provide a very short task dispatch latency and interrupt handling response
time. A unified scheduling framework for supporting various scheduling
paradigms (such as priority-driven, time-driven and share-driven) will be
investigated. New scheduling algorithms will be studied as a result of the
unified scheduling framework. Different from previous real-time Linux
projects, RED-Linux will not implement a separate real-time kernel (which
co-exists with the Linux kernel) to handle real-time tasks. All real-time
and non-real-time tasks are handled and scheduled by the same kernel.
Real-time tasks are scheduled according to their real-time and QoS
requirements. Non-real-time tasks are scheduled with a fair share of
system time, sharing the resources used by real-time and other
non-real-time tasks. Finally, the project will investigate an open kernel
structure with modular components so that it can be used in different
embedded system environments by integrating components with specific
capabilities.